Mathematical Sciences: Presidential Young Investigator Award

The principal investigator has received a Presidential Young Investigator award. This award will allow him to vigorously develop his promosing career dealing with a wide range of issues in pure and applied mathematics including control theory, dynamical systems, and classical mechanics.